Simulation of Errors in Various Thermophysical Experiments From Which Virial Coefficients are Extracted

The general objectives of this project are as follows: (1) To identify various systematic and random errors and/or error levels in the different experiments from which virial coefficients are currently extracted. There experiments include measurements of P-V-T and sonic velocity. (2) To find how these errors propagate into the virial coefficients using computer simulation of the original experiment. (3) To reduce the errors in each experiment by existing apparatus and constructing new ones, particularly for the technique shown to have the least inherent error following propagation. (4) To end the present sonic/P-v-T controversy, which has cast a shadow over literature virial coefficients, both by computer simulations and new experimental measurements. (5) To provide correlators/compilers with quantitative procedures for classification of the accuracy of published virial coefficients.